Center for Computer Aided Process Engineering

This University/Industry Center for Computer-Aided Process Engineering conducts research leading to effective computer-aided process engineering through data management and user interfaces to integrate application programs. The Center will outline generic engineering design systems, specify functional requirements and rank necessity of the components, and develop data models, namely, the relationship between the entities, and a prototype data dictionary for process engineering compatible with the needs of project and design engineering. Additionally, it will develop easy-to-use tools for integrating application programs, databases, and building user-friendly interfaces; explore requirements through the application of expert systems programs and concepts to data management in chemical engineering process design; identify and explore issues of multi-databases in an environment of distributed computers with emphasis on data change control; and survey existing systems, including hardware, for database management systems and requirements (including non-engineering systems) and identify pros and cons of adequacy.